Dissertation Research: Maternal Schooling and Child Rearing Styles in Highland Maya Community

This project will examine the relationship between mother's schooling and child rearing styles in Mitontic, a rapidly modernizing rural highland Maya community in Chiapas, Mexico. In particular, researchers will examine the proposition that mother's schooling affects social identity, parental investment strategies, and conceptions of personal development and interpersonal relations creating great differences in the environments infants experience. This project will provide a detailed account of early individual development in a sample of 25 Mayan infants and explore their mother's child care style as a function of sociocultural conditions (especially mother's schooling and cultural conceptions of child rearing) and a child's individual characteristics (e.g., gender, health, and birth order). In addition to intensive ethnographic research on child rearing practices in Mitontic, mother-infant interaction will be videotaped on a bimonthly schedule and biweekly interviews with the mothers will be conducted from birth onwards in a longitudinal study of the first two years of life.